Efficient Importance Sampling Simulation for Coded Communications Systems

Importance sampling is a general Monte Carlo method that in principle allows the simulation designer to utilize specific knowledge of the systems operation in order to reduce the computational burden of a particular simulation run. Computational efficiencies of three to five orders of magnitude might be possible. The application area being studied in this project is the digital satellite communication channel, characterized by noise, intersymbol interference, and system nonlinearity. Trellis-coded modulation and Viterbi decoding are initially employed as the signalling format.